Experimental and Theoretical Study of Rigid Body Collisions of Robotic Systems

This research is focused on several existing models of the dynamics of colliding rigid bodies. Although recent work has revealed energy inconsistencies in the classical Newton-Whittaker method, there is insufficient experimental supporting evidence of the behaviors implicit in the model structures. To test some of the more recent approaches a series of laboratory experiments involving load cells, kinematic chains and a high-speed camera processor will be carried out. The data set will include normal force at collision point, coefficients of friction, coefficient of restitution as well as pre and post-impact velocities. Analysis of the experimental results and the several existing models will serve to advance our understanding of two and three dimensional impact dynamics.*** //